U.S.-New Zealand Joint: Seminar/Workshop on Molecular Evolution; December, 1992; Rotorua, New Zealand

This award will support the participation of nine U.S. scientists in a joint seminar on Molecular Evolution to be held in early December 1992 on the campus of the Forest Research Institute at Rotorua, New Zealand. Participation of the New Zealand scientists is supported through the Ministry of Research, Science and Technology. The New Zealand Journal of Botany will publish the seminar proceedings. Organization of the seminar is being conducted by Dr. Michael T. Clegg from the University of California at Riverside and Dr. Bruce S. Weir from North Carolina State University on the U.S. side, and by Dr. Michael Hendy and Dr. David Penny from Massey University in New Zealand. Many sets of DNA sequences of the same gene from different plant taxa are now available. Evolutionary comparisons of homologous sequences provide a powerful means of resolving functionally important regions such as the sequence motifs in chloroplast gene regions. Once such motifs are identified, the relationship to gene or protein function can be further explored with mutagenesis experiments. Research in both theoretical and plant molecular evolution has been pursued in the U.S. and New Zealand and it now seems appropriate for some combining of forces to benefit both communities. The speakers will describe their current work in molecular evolution. The plant scientists will gain from learning of new techniques for modelling evolution and analyzing data, while the theorists will learn of biological advances that require model or methodology development. The central theme of the seminar will be that of managing and using molecular data for a study of plant evolution. The organizers believe the seminar will act as a foundation for future long-term collaborations.